A Workshop on the Study of Environmental Arctic Change (SEARCH)

Significant changes in the atmosphere, the oceans, and the terrestrial environment and biota in the Arctic have been seen over the past several decades. A workshop had previously convened (October 1997) to describe current observations regarding to these changes. Based on the report from that workshop, the scientific steering committees of the Arctic System Science program and the Ocean Atmosphere Ice Interactions program recommended the development a science plan. Under this award, a scientific steering committee for the Study of Environmental Arctic Change (SEARCH) will plan a study of Arctic environmental change and will interact with the scientific community in part through a workshop. The SEARCH steering committee will complete a science plan that will describe the approach needed to study and to assess the causes, rates, and environmental significance of these Arctic changes.